LaRET Site: Linking Teachers with Researchers to Improve Engineering Education

This award provides funding for a 3 year continuing award to support a Research Experiences for Teachers (RET) in Engineering Site program at the Louisiana State University entitled, "LaRET Site: Linking Teachers with Researchers to Improve Engineering Education", under the direction of Dr. Warren N. Waggenspack.

This Research Experiences for Teachers (RET) in Engineering Site involves a six-week summer research schedule of active learning activities and academic year follow-on activities for a total of 30 high school science teachers from several regional public school districts and community college faculty, 10 each year for three years at LSU's Center for BioModular Multi-Scale Systems (CBM2), Center for Advanced Microstructures and Devices (CAMD), Office of Strategic Initiatives and the Gordon A. Cain Center for Scientific, Technological, Engineering and Mathematical (STEM) Literacy. The primary purpose of the LaRET is to build an infrastructure of knowledge and understanding so that all participants develop expertise and strategies in promoting and strengthening STEM education practices with an empahsis in engineering and developing collaborative connections among researchers and high school/community college practitioners.